Eleventh Interdisciplinary Laser Science Conference (ILS-XI); September 10-15, 1995; Portland, Oregon

This award is to provide travel support for students and young researchers presenting papers at the Eleventh interdisciplinary Laser Science Conference in Portland, Oregon in September, 1995.